Survey of Living Conditions in the Arctic Phase 2: Inuit, Saami and the Indigenous Peoples of Chukotka

Abstract
OPP-0120174

The international survey of living conditions among indigenous peoples across the Arctic involves a partnership of researchers and indigenous organizations in Greenland, Canada, Norway, Sweden, Finland, Denmark, Russia, and the United States. This portion of the project focuses on indigenous households in Alaska's North Slope, Northwest Arctic, and Bering Straits regions. The goal of the international study is to develop an integrated set of individual, household, community, and regional databases for use in comparative analyses of living conditions among Arctic populations.